Neuronal Cooperativity in the Somatosensory System

Individual neurons in the nervous system use electrical impulses or action
potentials to communicate sensory information from one region of the brain
to another region. This project is concerned with determining how neurons
in the somatosensory part of the thalamus communicate with neurons in the
somatosensory part of the cerebral cortex during tactile stimulation. More
specifically, we wish to measure how the relative timing of action
potentials among neighboring thalamic neurons might alter the
responsiveness of neurons in the cerebral cortex. Many neuroscientists
believe that cortical neurons are likely to respond with an action
potential when they receive communication from multiple thalamic neurons at
the same time but are less likely to respond if they receive communication
from only one thalamic neuron. We will directly test this hypothesis by
inserting multiple electrodes into both brain regions and recording the
precise times of their neuronal action potentials when the skin is touched
by a computer controlled air puff. We will use statistical analysis to
determine if the probability of a cortical action potential is highest when
pairs of thalamic neurons discharge at the same time (in synchrony) or at
different times (asynchronously). We will also use our computer controlled
air puffer to stimulate the skin in a variety of spatiotemporal
configurations to determine which types of tactile stimuli are best for
activating pairs of thalamic neurons at the same time. We will also use
this method to determine which tactile stimuli activate pairs of cortical
neurons at the same time. This research project is important because it
will determine if neuronal synchronization is a mechanism used by the brain
to communicate information from one brain region to the next. This project
will also provide evidence suggesting whether neuronal synchronization
could be used by the brain to represent certain types of sensory
stimuli. Hence, when this project is completed, we will know how
individual cortical neurons respond to simultaneous inputs and this will
greatly increase our understanding of how neuronal circuits operate in the
mammalian brain.